SGER: Minority Serving Institutions Consortium Access Grid Support Pilot Project

This Small Grant for Exploratory Research (SGER) funds a twelve-month pilot effort for site-visit support for emerging research and education communities' adaptation and deployment of technology, in particular research and education communities at minority-serving institutions. This pilot effort is in collaboration with the Minority Serving Institution Consortium (MSIC), led by Stephanie A. Mclean of the National Center for Supercomputer Applications (NCSA).